Molecular Relaxation and Radiative Processes

Shaul Mukamel of the University of California Irvine is supported by the Theoretical and Computational Chemistry program of the Division of Chemistry for research into the development of theoretical techniques for the calculation of electronic and vibrational dynamics in complex molecules. The research involves a special emphasis on predicting the signatures of these dynamics in novel nonlinear spectroscopic probes. In particular, Mukamel is developing a dynamical approach to understanding electronic excitation in aggregates and single molecule junctions; is carrying out research into a method for photon counting statistics in single molecule spectroscopy; is considering nonlinear spontaneous fluctuations, response, dissipation and intermolecular forces; and is looking at the distribution of work in driven molecules and nonequilibrium steady states. This work is having a broad impact on other fields, particularly experimental studies of these systems. In addition, Mukamel is continuing to offer, on a permanent basis, his Chemical Physics Summer School which has been particularly successful at introducing young researchers to this theoretical field.